Measurement of Radiation Intensity Distributions in a Participating Medium

The objective of this project is to provide an experimental basis for the various analytical/numerical solution techniques which have been developed for radiation heat transfer in participating media. A heated enclosure filled with a fibrous materials as the participating medium will be the test article. Radiation issuing through a slit will be measured with a reflective optical system designed to minimize and account for thermal noise. The experimental results will be compared to numerical results using the discrete ordinate method. Results with and without imbedded thermal sensors will be obtained.